Mathematical Sciences: Jordan Structure Theory

This project is concerned with the structure of Jordan algebras and triple systems. The principal investigator will extend Zelmanov's classification of prime bimodules for Jordan structures. He will study the structure of prime Jordan triple systems of Clifford type and investigate the s-identities of Glennie and Thedy. In addition, the influence of Jordan and alternative superalgebras on the structure of ordinary Jordan and alternative algebras will be considered. This research is concerned with the study of Jordan algebras. Jordan algebras arose in the 1920's through the efforts of the physicist P. Jordan to find an algebraic generalization of the formalism of quantum mechanics. These structures have some interesting connections with several different areas of mathematics.